Computer - Intensive Statistics in Mathematical Astronomy

This research will determine appropriate new and innovative computer-intensive statistical procedures and apply them to samples of discrete extragalactic sources defined by objective criteria, and to their relations with the predictions of mathematical cosmologies. The probabilities of such deviations as may be observed, assuming the sample is unbiased and accepted cosmology is correct, will be estimated by Monte Carlo methods. Statisical acceptability of the chronometric and Friedman cosmological hypotheses will be tested by comparison of their predicted observable relations with those observed in complete, or other statistically objectively delineated, published samples. Computer applicable multivariate estimation for luminosity functions at several frequencies will be investigated. This research is cross-disciplinary, involving a symbiosis of Statistics with Computational Cosmology. The fields of Statistics, Lie Groups, Modern Analysis, Geometry, Relativity, and Cosmology are all scientifically relevant in an essential way to the testing, validation, and formulation of cosmological theories of the nature of the redshift and its objective statistical implications. Senior scientists from these fields, which are normally non-interacting, will combine their expertise in re-analyzing extragalactic data and retesting the redshift theory.